"Cosmic Voyage" A 70mm Imax Film

COSMIC VOYAGE will be the first film in IMAX to survey the whole universe. Its main objective is to convey to a broad museum audience the enormous range of space and time scales spanned by the universe, and to locate our familiar human place in this context. The film's centerpiece will be a continuous "cosmic zoom" extending from the largest observable structure of the universe down to the subnuclear realm, a guided tour across some 42 orders of magnitude. This will be followed by a similar excursion through the dimension of time, from the first instant of the Big Bang to the present day some 15 billion years later. The film will take special care to explain the utility and importance of "orders of magnitude". It will indicate the observational basis underlying our description of the physical world. The narrative will emphasize the continuity as well as the open- ended nature of the scientific enterprise over a wide range of disciplines (cosmology, high-energy physics, astronomy, geology, chemistry and biology), and it will integrate the whole into a coherent picture of the universe. COSMIC VOYAGE will communicate this material in ways that are scientifically accurate and instructive, as well as visually absorbing and entertaining. The overall aim is to produce an unparalleled film about the universe that is both beautiful and powerful.